Workshop on Architecture and Software for Emerging Applications (WASEA)

High-valued domain applications in areas such as medicine,
biology, physics, engineering, and social phenomena demand
both fast innovation and high execution speed and require
productive development environments for domain experts who
may not be computer science experts. This workshop brings together leading researchers in architecture,
compilers and programming languages, and domain experts to discuss
and debate potential approaches to accelerating progress in such
high-valued domains with an emphasis on developing strategies for
exploiting machine learning, including strategies for accelerating
learning algorithms through parallelism. The goal is to stimulate
an in-depth discussion of the potential benefits of joint architecture
and compiler approaches. The workshop will promote broadening
participation by including speakers from groups underrepresented
in computing and early career researchers.

The workshop will produce a report providing recommendations on:
joint compiler/language and architecture approaches, compiler/language
support enabling more aggressive hardware capabilities, architecture
support enabling more effective compilers, and applications whose
development process could benefit by these advances, The report
will identify research opportunities in the interaction between
developers, and architecture and language/compiler researchers to
enable productive domain application development and highly efficient
and scalable implementation on heterogeneous computing systems. The
report will outline promising approaches and the research required for
these approaches to become usable by the domain application developers.